Developing Effective Mathematics and Science Teachers by Expanding Partnerships with High-Need School Districts with Diverse Student Populations

This Noyce Track 1 project at Millersville University of Pennsylvania (MU) aims to serve the national need of secondary mathematics and science teachers, by recruiting STEM majors into teaching careers and preparing them to be successful in high-need schools. Additionally, this project will support 15 STEM majors (e.g., biology, chemistry, earth science, mathematics, physics) by offering training and support through a professional development school model that promotes critical skills such as pedagogical content knowledge for effectively teaching in high-need school districts. The proposed project components will enable high-achieving prospective teachers to potentially impact the quality of education and attainment that the students in high-need districts receive.

This project includes partnerships with the School District of Lancaster and the City of York School District. The project will rely on the support of the STEM Education Advisory Board and a STEM Education Graduate Assistant, both created by previous success with a Capacity Building Grant. To assure long-term success, we will develop skills and pedagogical content knowledge in future STEM teachers through participation in group activities such as monthly cohort meetings, MU seminars, and attendance at professional workshops and education conferences. Internal and external evaluations will help us determine which of these activities have the greatest impact, ensuring that we will continue to incorporate best practices that will shape and support competent teachers who can address the serious shortage of STEM secondary teachers in high need schools. Evaluation of the project will be guided by the following evaluation questions: (a) In what ways does program implementation correspond or not with program design (implementation fidelity)? (b) What are the main challenges and successes to program implementation and how have the challenges been resolved? (c) To what extent do students show increased confidence and preparedness for a teaching career? (d) Which program activities are student scholars consistently utilizing and what are the perceived impacts of those activities? (e) What are the perceived barriers to program progress? (f) What is the potential for impacts of the innovation (broader impacts)? and (g) How is the project positioned to contribute to learning (intellectual merit)? The results of this project will be disseminated to help enhance the field. This Track 1: Scholarships and Stipends project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.